PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Marjorie Drake is "Approximate Extension and Trace Problems in Function Spaces (Sobolev, Weighted Sobolev, Smooth Convex, Nonlinear)." The host institution for the fellowship is The University of Pittsburgh, and the sponsoring scientist is Piotr Hajlasz.